Doctoral Dissertation Research in Decision, Risk, and Management Science

This study addresses questions concerning the comparative use of just-in-time (JIT) production philosophy in the United States and Mexico. Earlier research identified obstacles to the application of JIT in varying social and economic cultures. The goal of this project is twofold: (1). How do potential obstacles affect a company's ability to use and achieve the benefits of JIT, and (2). Does JIT lead to improved performance in non-US settings. In order to address these questions, a model of JIT and hypotheses concerning potential obstacles was developed. Case studies of plants in the United States and Mexico that are moving towards adoptions of JIT will be used to test the hypotheses. Data will be collected through interviews, observations, and surveys administered to workers and managers in each plant. Results should enhance understanding of how the operating environment affects operations in general and should lead to a better understanding of JIT because of the unique perspectives that can be achieved by studying it in diverse environments. The research should benefit firms doing business in different cultures and environments. The project is funded as a Doctoral Dissertation Improvement Grant.